Multiscale Data Representations in Geometric and Nonlinear Settings

The principle investigator and his collaborators plan to
construct, streamline and analyze a suite of multiscale data
representation methods in various nonlinear and geometric
settings, as well as their applications.
Some of these multiscale representations include:
free-form jet subdivision surfaces,
multiscale representation of vector and tensor fields on
free-form subdivision surfaces, wavelet-like transform of
nonlinear range data, e.g. time series or spatial arrays of
data taking values at a manifold.
The PI intends to explore theoretical questions such as:
When a traditional spline or subdivision method is modified
to apply to data which satisfy specific nonlinear
constraints, how would the curviness of the underlying
nonlinear manifold affect the stability, approximation and
smoothness behavior of the original method?
The PI and his collaborators are also
developing software tools for the fast prototyping and
computational analysis of these novel multiscale methods, as
well as applying them to real datasets.

Fueled by the advances in various sensing technologies (in
optics, syntheture aperture radar, etc.), new forms of data
type begin to arise in many different significant fields in
science and engineering, and it is the task of mathematicians
to help preparing the world to make good use of such data.
Obvious application areas include material sciences,
diffusion tensor imaging, hyperspectral imagery, computer
aided design/animation, robotics (motion planning), just to
name a few.
In each of these technologies, efficient multiscale methods
is a must for processing tasks such as the compression,
registration, fast search, browsing, structure reconstruction, etc.